CMG: Improved Seismic Inference via Better Spectrum Estimation

CMG RESEARCH: Improved Seismic Inference via Better SpectrumEstimation
Intellectual Merits: Much of the inference in seismology, from normal--mode studies to
analysis of faulting mechanisms, depends on having reliable estimates of spectra and, possibly
more important, reliable estimates of their uncertainties. The collaborative effort between
mathematics and geophysics in this proposal is being driven by the development and deployment
of high dynamic range broadband sensors networks in the field of seismology that require the
development and implementation of sophisticated data analysis tools to create a better
understanding of the earthquake source and Earth structure.
The spectra of the transient elastic body waves (P and S waves) provide fundamental
information and constraints on earthquake source properties and physics. Currently the state-of-the-
art for the study of the physics of earthquakes is the estimation of source parameters, usually
estimated from the spectra of the transient seismic waves.
Spectral analysis has recently undergone a revolution with the development of
sophisticated techniques in which the data are multiplied in turn by a set of tapers that are
designed to maximize resolution and minimize bias. In addition to minimizing the bias while
maintaining a given resolution, the multi-taper approach allows an estimate of the statistical
significance of features in the power spectrum. Developing quadratic inverse theory that utilizes
not only the spectral estimators, but the time and frequency derivatives of the spectrum, to
generate a much higher resolution spectra. This project will extend this theory from a univariate
theory to generalized multivariate theory. While the applications discussed here are seismic, it is
clear that there are other geophysical, scientific, and engineering applications that will benefit
from the proposed studies. Obvious candidates are climate studies (both paleo and modern), and
space physics.
Broader Impacts: Advancing discovery and understanding while promoting teaching, training,
and learning. Broaden participation of underrepresented groups by participation of minority
students and by presenting project related web pages in English and Spanish. Broad
dissemination of results will be accomplished through conference presentations, journal articles,
and web presentations.